Conference in Honor of Ronald Fintushel

Abstract

Award: DMS-0506737
Principal Investigator: Thomas Mark, Scott J. Baldridge, Terry Lawson

This proposal funds a conference in honor of Professor Ronald
Fintushel's sixtieth birthday, to be held in late October or November
2005 at Tulane University. Dr. Fintushel has led a distinguished
career as a researcher in low-dimensional topology, particularly the
differential topology of 3- and 4-dimensional manifolds and
applications of gauge theory to that study. His work with various
co-authors on group actions on low-dimensional manifolds, and more
recent results with Ronald Stern on the homology cobordism group of
homology 3-spheres, gauge theory, and constructions of ``exotic''
4-manifolds, has been an inspiration to contemporary topologists and
continues to provide new directions for inquiry in these areas. The
past two decades have been a period of remarkable progress in
low-dimensional topology, particularly the theory of smooth
4-manifolds. This conference, involving leading figures in this area,
will provide participants with both a context in which to understand
recent advances and a framework for future endeavors. The speakers
will include experts in fields that Fintushel has contributed to, with
a focus on smooth 4-manifolds, and the audience will include graduate
students and recent Ph.D.'s who will benefit from exposure to
Fintushel's fascinating and creative work. Both Ronald Stern (UC
Irvine) and Peter Ozsvath (Columbia) have already expressed interest
in giving lectures; other invited speakers may include John Morgan
(Columbia), Tomasz Mrowka (MIT), Allan Edmonds (Indiana), Danny
Ruberman (Brandeis), Zoltan Szabo (Princeton), and Clifford Taubes
(Harvard). The final schedule will be determined closer to the time of
the conference in consultation with Dr. Fintushel; the influence of
the guest of honor can often sway the balance in a speaker's decision
to attend.

As a conference in honor of an individual, the lectures will naturally
center on those areas of research most influenced by that
individual. Dr. Fintushel has made many contributions to an area of
mathematics that has relatively recently become a crossroads among
disciplines, both within mathematics and in theoretical
physics. Conferences such as this are therefore increasingly
important, providing researchers with a variety of perspectives on
problems that are nevertheless united by common themes. As a joint
project of Tulane University, Southeastern Louisiana University, and
Louisiana State University, this conference will provide exposure for
these mathematics departments on a national level and boost the
reputation of the region as a center of research. This will increase
the potential for the universities in this area to attract more
high-quality faculty and students from around the country. Likewise,
the conference will enhance the exposure of local current graduate
students to the latest developments in research and to the researchers
themselves.